Mathematical Sciences: Stochastic Analysis & Modeling in Financial Mathematics

DMS-9732810

STOCHASTIC ANALYSIS AND MODELING IN FINANCIAL MATHEMATICS

Principal Investigators: IOANNIS KARATZAS and JAKSA CVITANIC

Research is proposed on various open mathematical problems of stochastic
analysis and control, which arise in the context of the modern theory for
financial markets. Most of these problems are formulated in the
context of a continuous-time model for a market with one riskless
and several risky securities, and involve
(i) questions of single-agent optimization, multi-agent equilibrium,
hedging and pricing of contingent claims in markets with prices that
can depend on the investment strategy of a "large investor";
(ii) optimization, least expensive hedging, and pricing, in markets
with transaction costs;
(iii) questions of fair pricing in arbitrary incomplete markets,
including markets with portfolio constraints;
(iv) maximization of the probability of hedging, in various models;
(v) study of new, game-type options;
(vi) dynamic measures of risk;
(vii) stationary equilibrium in strategic market games;
(viii) related questions of stochastic analysis such as existence and
uniqueness of certain Forward-Backward Stochastic Differential Equations,
existence and uniqueness of viscosity solutions to certain PDE's and
variational inequalities, solving non-standard stochastic control problems
where the loss function has a random component.
It is expected that known tools from stochastic analysis and martingale
theory, convex duality theory, functional analysis, stochastic control
and viscosity solutions to partial differential equations and variational
inequalities, will prove valuable in the resolution of these questions,
but also that new tools will have to be developed to solve nonstandard
problems that arise. Thus, the project should result in the advancement
of the understanding of both the theoretical and applied aspects of these
fields.

The significance of the proposed research is related to the fact that
one of the main gaps between theory and practice of financial markets
is the prevailing assumption in most of the models that the markets are
perfect, implying that every financial contract can be priced in a unique
way, and its risk can, in principle be fully controlled (hedged).
In reality, however, this is not the case; markets are "imperfect" or
"incomplete" due, among other things, to investment constraints, transaction
costs, different interest rates for borrowing and lending, different
patterns of information, presence of "large" or "informed" investors
who can influence prices, etc. Thus, it is very important to develop
new methods for studying the risks and the ways of pricing financial
instruments in imperfect markets, some of which are suggested in this
proposal. In particular, these methods should prove useful in newly
developing markets such as re-insurance, catastrophic insurance, energy
derivatives, credit-risk derivatives and other insufficiently liquid markets.